Institute for Complex Adaptive Matter (ICAM)

The Institute for Complex Adaptive Matter (ICAM) was created in March 1999 at Los Alamos under the auspices of the University of California Office of the President by scientists from universities, national, and government laboratories to foster multidisciplinary research in the areas of soft, hard, and biological matter. Support is provided for (1) organizing exploratory multidisciplinary workshops and communicate the results with the scientific community; (2) develop multi-institutional research teams on topics emerging from the workshops with a focus on young scientists; (3) establish ICAM research nodes at academic institutions and supporting programs for graduate and postdoctoral students, summer schools, and conferences on complex adaptive matter. The award is jointly supported by the NSF Divisions of Materials Science and Physics, as well as the Office of Multidisciplinary Activities of the Mathematical and Physical Sciences Directorate.
%%%
***